Algorithms for Scheduling and Load Balancing

The recent explosive growth in parallel and distributed systems has brought new importance to the field of scheduling theory. In order for this technology to fulfill its potential of providing tremendous computing power, it is crucial to understand how to best schedule the components of a computation on the resources of the parallel or distributed system, so that the most efficient use possible of these resources is achieved. In this research algorithms will be designed for the basic problems of scheduling a set of machines. Although this work is motivated by the application of these problems to parallel and distributed computing, many of the problems are of great importance in operations research as well. The focus is on two fundamental models of scheduling more than one machine: the shop model, in which each job has a number of operations, each of which must be processed by a particular machine, and the parallel machine model, in which each job has one operation which can be processed by any of the machines. Most of these problems are NP-hard, and much remains to be understood about how well they can be approximated in polynomial time. Further, work will be done on scheduling models that more completely capture realistic parallel and distributed scheduling questions. Traditional models have largely ignored any underlying parallel and distributed network; they have also most often assumed that the entire specification of a problem is given in advance of the beginning of the construction of a schedule. Problems of scheduling and load balancing on specific networks and architectures and on-line algorithms for both the traditional and more realistic scheduling models will be studied.